Mathematical Sciences: Regular Variation: Analytic Approaches to Probability and Statistics

The mathematical analytic concept of regular variation is fundamental for the study of sums and of extremes. This research will investigate the applications of this branch of analysis to a wider range of topics in probability and statistics, particularly to infinitely divisible distributions and Levy processes, to nonparametric function estimation, to long-range dependence of variables, and to regression problems with infinite variance and/or large deviations. Multivariate subexponentiality, a related concept, will be studied as it relates to tail-behavior of extremes and of sums of random variables.